Sustainable and Inclusive STEM for K-5 Environmental Sustainability Education

This Track 3 Robert Noyce Teacher Scholarship Program project at The College of New Jersey aims to serve the national need of preparing highly effective K-5 STEM teacher-leaders. Additionally, this project will support 24 K-5 STEM Master Teacher Fellows by providing graduate coursework and extensive professional development. The first year of the program will include coursework to complete a graduate certificate in Environmental Sustainability Education. During this year, MTFs will build deep content and pedagogical knowledge related to STEM and environmental education. In Year 2, MTFs will engage in professional learning sessions focused on developing a teacher-leader skill set. During Year 3, MTFs will support future teachers. These MTFs will provide guest lectures for preservice teachers enrolled in methods courses and host teacher candidates in their classrooms for field placement activities. In Years 4 and 5, MTFs will define their own unique and personalized pathways for serving as STEM teacher-leaders in their schools, classrooms, networks, and communities. Through consultation with the project team, the MTFs will develop and implement their personalized leadership plans. These MTFs will become in-house experts supporting colleagues in their schools and beyond, aiding a broad network of teachers to continue to engage children in high-quality STEM teaching and learning in elementary schools. The proposed project components will enable high-achieving practicing teachers to become elementary STEM teacher-leaders in New Jersey.

This project at The College of New Jersey includes partnerships with Salve Regina University, the Alliance for New Jersey Environmental Education, the Hunterdon, Somerset, and Mercer TriCounty STEM Ecosystem and five regional high-needs school districts: Hamilton Township Public Schools, Flemington-Raritan Regional School District, Lawrence Township Public Schools, Delran Township Public Schools, and Ewing Public Schools. Over six years, we will develop 24 Master Teacher Fellows (MTFs) in two cohorts building excellence in K-5 STEM education in their classrooms and beyond. Project goals include developing a cadre of STEM teacher-leaders in K–5 classrooms in high-need LEAs who are knowledgeable, skilled, and comfortable implementing STEM education instruction across subjects using the NJ Student Learning Standards; innovative, committed leaders and resources for students and colleagues with a vision that STEM education includes and engages all learners; and practicing classroom teachers who continue to serve within the space of their schools and classrooms. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) How does participation in the program impact MTFs' development and enactment of STEM content knowledge and environmental sustainability instruction? and (b) In what ways do MTFs demonstrate and extend leadership within their classrooms, schools, professional networks, and future career plans?. The results of this project will be disseminated to help enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM teacher-leaders in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.